5th National Conference on Synchrotron Radiation Instrumentation; Madison, Wisconsin; June 21-25, 1987

In June 1987 the Synchrotron Radiation Center (SRC) of the University of Wisconsin-Madison will host the SRI-5, the 5th National Converence on Synchrotron Radiation Instrumentation. The conference will emphasize instrumentation needed for the high brilliance sources currently in operation or under development. The general areas covered by the conference include new facilities, unconventional sources of radiation (insertion devices, storage ring-based FEL's, etc.), beamline instrumentation and detectors, and special instrumentation for lithography, angiography, etc.